RUI: Path-integral Simulations of Solids - Ordered and Disordered

The effects of anharmonicity and of atomic disorder on the vibrational properties of crystals are to be studied by means of simulation and other computational techniques. Molecular dynamics simulations will be used to study the structure in phonon lineshapes arising from both sources. These will be supplemented by lattice dynamical calculations using theories such as the coherent potential approximation for disordered crystals. Previous studies of the thermodynamic properties of quantum anharmonic solids will be continued. The primary technique here will be the effective-potential Monte Carlo procedure which has recently been developed, as well as quantum Monte Carlo for comparison. We also intend to explore the extension of the effective potential method to deal with dynamical properties. Disordered materials to be studied will include mixtures of the alkali halides, noble metal alloys and iron-based alloys. The quantum solids will include the high pressure phases of helium. %%% This award is a Research at Undergraduate Institution one to conduct computational studies of the properties of solids which are affected by anharmonic vibrations and disorder associated with the underlying atomic structure. Materials to be studied include alkali halide mixtures and metal alloys.